III-CXT: Learning from graph-structured data: new algorithms for modeling physical interactions in cellular networks

III-CXT: Learning from graph-structured data: new algorithms for
modeling physical interactions in cellular networks

The complex behavior of the cell derives from an intricate network of
molecular interactions of thousands of genes and their products.
Understanding how this network operates and predicting its behavior
are primary goals of biology and have broad implications for life
science, medicine and biotechnology.

The genomic information revolution of the last ten years has enabled
new systems-level and data-driven approaches for studying cellular
networks. In particular, using machine learning to model gene
regulatory networks---the switching on and off of genes by regulatory
proteins that bind to non-coding DNA---has emerged as a central
problem in systems biology. Now, an explosion of new high-throughput
technologies for measuring physical interactions between proteins and
between protein and DNA provides a new data integration challenge for
computational modeling of gene regulation. These new data can all be
viewed as graph-structured data, or physical interaction networks.

The central computational goal of this project is to develop new
machine learning learning algorithms for exploiting graph-structured
data, including: (1) boosting with efficient graph mining; (2) graph
kernels based on subgraph histogramming; and (3) information-based
graph partitioning. These new algorithms will be used to integrate
physical interaction network data into models of gene regulation in
order to better represent underlying biological mechanisms. The
focus will be two fundamental modeling problems: inferring signal
transduction pathways and modeling cis regulatory modules at the
level of DNA sequence and interacting regulatory proteins. The
algorithms will be applied both to publicly available data and to
primary gene expression data provided by one of the investigators to
study the hypoxia in yeast and the response to environmental toxins
in mammalian neural cells.

This project will learn systems-level models that lead to new insight
into the underlying mechanisms of gene regulation and open the way to
broader biological discoveries. All data, results and source code
will be publicly available via the Web (http://www.cs.columbia.edu/
compbio/cellular-networks) and disseminated through courses and
bioinformatics software packages. The project will also create
undergraduate research opportunities for joint dry and wet lab
projects and outreach activities to introduce New York City public
high school students to new interdisciplinary areas of science.